Mathematical Sciences Research Institute 5 Year Proposal

Abstract

Award: DMS-0441170
Principal Investigator: David Eisenbud

The Mathematical Sciences Research Institute (MSRI) is a national
research institute that seeks to further mathematical research
through broadly based programs in the mathematical sciences and
closely related activities on widely ranging topics. The
Institute operates without permanent faculty and conducts long
programs (half- or full-year), conferences, and introductory
workshops aimed at students and postdoctoral researchers. MSRI
contributes to the development of the mathematical sciences
workforce through postdoctoral appointments to the long programs,
summer graduate programs, and administration of the Bay Area
Mathematical Olympiad and Berkeley Math Circles. Outreach and
communication efforts include public lectures in the San
Francisco Bay area, sponsorship of films on mathematics, and
systematic Web video delivery of recorded MSRI lectures.

The MSRI Web site at http://www.msri.org/ describes upcoming and
past programs, solicits ideas for future programs, and offers
application forms for Institute activities.